Topics in Stochastic Control, Portfolio Optimization and Credit Risk Analysis

0202851
Bielecki

The proposed research will be organized into two principal
research areas: 1) Development of mathematical theory for risk
adjusted portfolio optimization and fixed income investment
management, incorporating factor modeling of security returns,
and 2) Development of mathematical theory for credit risk
valuation and hedging. There are three fundamental aspects of the
first research area: 1A) The concept of risk adjusted control
(optimization) criteria for investment problems with finite and
infinite planning horizons. More specifically, we shall continue to
develop theory and applications for mean-variance stochastic
control. This kind of control problems is appealing to financial
industry as it extends to more realistic dynamic framework the
classical approach of Harry Markowitz (1990 Nobel Prize in
Economics). 1B) Development of control methodologies for the
fixed income investment problems with finite planning horizon
coinciding with the maturity of the underlying bond. We shall
attempt to overcome certain singularity problems arising in this
context, which will lead to derivation of applicable fixed income
investment strategies. 1C) Explicit consideration given to statistical
estimation issues. Optimal control methodologies are rarely used in
the financial industry, largely because of statistical difficulties
associated with the estimation of constant drift coefficients in
diffusion process models of individual securities. Practitioners
typically channel their energies into forecasting security returns
based upon exogenous factors such as interest rates and firm-
specific accounting measures. The proposed research will serve to
reduce the gap between theory and practice by developing
optimization models, which explicitly incorporate exogenous
factors. By explicitly modeling the dependence of the assets on
factors, it will be possible to obtain more realistic models, to better
understand the statistical estimation difficulties, and to be in a
position to apply adaptive control methods. The fundamental
aspects of the second research area are: 2A) Explicit consideration
given to possibility of credit migrations of defaultable contingent
claims. This will be done in the context of conditionally Markov
chains both with regard to a single defaultable claim as well as
with regard to several such claims. The latter situation is very
important for applications to basket credit derivatives. 2B)
Development of mathematical theory for hedging of certain classes
of credit derivatives that are vital for financial industry. This will
be done in the context of martingale representations associated
with conditionally Markov chains. 2C) Development of analytical
tools for computation of certain class of functionals of conditional
Markov processes. This will build upon the classical Feynman-Kac
characterizations, and will find applications for valuation and
hedging of some fundamental (basket) credit derivatives such as
default swaps.

Although the proposed research will require fundamental advances
within the areas of applied mathematics, probability, and financial
economics, it is anticipated that the proposed research will lead to
new and practical tools that eventually become widely used in the
financial industry, and possibly in the insurance industry as well.
The main reason for this expectation is that the proposed research
addresses the need of the two industries for quantitative
methodologies that would enable financial and insurance decision
makers to properly manage certain categories of risks. The major
implication of incidence of risks in financial/insurance decision-
making is the possibility of financial losses. In general, neither the
possibility of financial losses, nor their occasional severity, can be
completely eliminated. However, workable tools, such as pricing
and hedging strategies, are sought for controlling some of the risks
underlying financial and insurance industries, so that both the
possibility and severity of losses are kept to minimum. The
proposed research will provide mathematical basis for
development of such tools.